Manifolds with Non-negative Curvature

Abstract

Award: DMS-0504202
Principal Investigator: Wolfgang Ziller

The principal investigator will continue his work on manifolds
with non-negative and positive sectional curvature. In this
subject, which has been studied extensively in the early years of
global Riemannian geometry, only few obstructions are known, the
major one being Gromov's Betti number theorem. On the other hand
there are also very few known examples, mainly arising by taking
quotients of left invariant metrics by a group of
isometries. Recently significant progress has been made by
studying positively curved manifolds under the presence of a
large group of isometries, partly in the hope of finding good
candidates for new examples of this type. We recently obtained a
partial classification of positively curved cohomogeneity one
manifolds, i.e. manifolds where a group acts isometrically with
one dimensional quotient. In this classification one is left with
a very interesting sequence of 7-manifolds which are,
surprisingly, connected to self dual Einstein metrics and
3-Sasakian geometry. We plan to investigate whether these
manifolds carry a metric with positive curvature. For
non-negatively curved cohomogeneity one manifolds there are many
examples, constructed by the author in previous grant proposals,
including some on exotic spheres. On the other hand the author
also showed that the exotic Kervaire spheres cannot carry such
metrics. This makes a classification of non-negatively curved
manifolds a very interesting although difficult question, which
the authors plans to investigate in the future. We also plan to
study geometric and topological properties of the known examples
of manifolds with positive, or more generally non-negative
sectional curvature. As a next step, we plan to study positively
curved manifolds with low cohomogeneity.

Since the round sphere of constant positive curvature is the
simplest and most symmetric Riemannian manifold, it is natural to
ask what manifolds carry metrics with similar geometric
properties, i.e. metrics with positive curvature. This fits into
the natural question of what global consequences one can derive
under local geometric assumptions, a major area of global
Riemannian geometry. A basic unsolved question is whether exotic
spheres, i.e. manifolds that look like spheres but on which
ordinary calculus is quite different, can carry positively curved
metrics. Symmetries are an important aspect of many geometric
questions and the principal investigator plans to study manifolds
with positive or more generally non-negative curvature under the
presence of a large symmetry group. One of the goals of this
investigation is the search for new examples.